Stimulating Learning Eltro-Optics with Optical Spectrum Analyzers

Three sets of optical spectrum analyzers are being used for this project; one for each of the three work stations in the electro-optics laboratory. That laboratory is used for two undergraduate laboratory courses which have a total annual enrollment of about 105 students. In addition, about 20 senior projects and 10 directed independent studies are completed in that laboratory annually.The new equipment is being used by students for trouble shooting and as a means of graphically displaying and analyzing the spectra of optical sources, modulated optical signals, and what is happening to such signals at various points in an optical network. A total of three new experiments are being introduced, enabling the students to gain practical experience in characteristics of optical sources, longitudinal modes of the laser, photodetectors and spectral characteristics of fiber optic networks. The experience gained in using optical spectrum analyzers is stimulating and expanding undergraduate learning in electro-optics.